SGER: Consideration of Uncertainty in Design

9900798
This study will address the issue of proper quantification of uncertainty
in decision making--particularly in the area of design. This lack of
quantified assessments of uncertainty results in incomplete
characterization of product design and investment alternatives. The
emphasis will be on real-world applications including energy-related and
space-related product examples. The problem of databases for describing
multi-attribute (specifically including risk) decisions when the engineer
or analyst is not the final decision maker will also be examined.
The results of proper characterization of risk and uncertainty has
application to all aspects of decision making including product design. The
resulting applications-driven theory would be robust and lead to improved
decision making.